The Nonstationary Nanoworld: The Mechanical and Optical Properties of Localized States in Molecules

This proposal is for studies in, "The Nonstationary Nanoworld: The Mechanical and Optical Properties of Localized States in Molecules". The program calls for investigations of the optical and mechanical properties of nonstationary states in small molecules that exhibit both classical and quantum behavior. The states will be created in the vibrational degree of freedom of a diatomic molecule using ultrashort pulse laser technology and will be detected via the time- and frequency-resolved spectrum of spontaneous emission. This will be used to completely reconstruct the quantum state.